U.S.-France (INRIA) Cooperative Research: Mapping of Regular Algorithms onto Different Architectures

9800117
Wilde

This three-year award supports U.S.-France cooperative research on functional programming languages for sequential and parallel computing machines. It involves Doran Wilde at the Brigham Young University and graduate students and Sanjay Rajopadhye at IRISA/INRIA (French National Institute for Research in Informatics and Applied Mathematics) in Rennes, France. The investigators will explore new methods and develop new tools for co-designing (or compiling) an algorithm to execute concurrently in reconfigurable hardware and in software.

The US investigator brings to this collaboration expertise in VLSI design, programming languages and compilers, and computer arithmetic. This is complemented by the French researcher's expertise in regular algorithms, systems of recurrence equations, parallel processing systems and formal parallelization methods. The project will advance understanding in the area of adaptive computing.